Geometry of Moduli Spaces

Abstract

Award: DMS-0604471
Principal Investigator: Xiaofeng Sun

In this project, the principal investigator proposed to study the
geometry of moduli spaces of Riemann surfaces and stable vector
bundles over a Riemann surface. These moduli spaces are the
center of many branches of mathematics and physics. Continuing
his previous works, the PI first proposed to prove the Mumford
goodness of several canonical metrics including the Ricci metric
and the Kahler-Einstein metric on the moduli space of Riemann
surfaces. The goodness of these metrics will allow one to apply
Chern-Weil theory to these moduli spaces which are
noncompact. The PI hope to develop a method to study the
intersection theory on the moduli spaces via differential
geometry by using the goodness. To study the goodness of the
Kahler-Einstein metric, except for the continuity method, the PI
proposed to investigate the Kahler-Ricci flow on the moduli
spaces. More generally, the PI proposed to study the Kahler-Ricci
flow on non-compact and quasi-projective manifolds where the
potential function of the initial metric is unbounded with mild
growth. The PI proposed to prove that the Kahler class and the
goodness of the initial metric are preserved under the
Kahler-Ricci flow. Also, the long time existence and convergence
of the Kahler- Ricci flow will be studied. Furthermore, the PI
proposed to investigate the negativity of various metrics on this
moduli space and harmonic map theory which will lead to various
vanishing and rigidity theorems. The PI also proposed to extend
his methods to the moduli space of stable bundles and study
vanishing theorems by using canonical metrics.

The theory of moduli space of Riemann surfaces has many
application in mathematics, physics and computer graphics. The
intersection theory on the moduli spaces is one of the key parts
in the modern string theory. Furthermore, it leads to significant
improvements in image recognition, compression and
decompression. The traditional method is to triangulate a surface
by picking millions of vertices and record the combinatoric
data. Thus a huge amount of calculations are needed. In
differential geometry, the Torelli theorem tells us that the
complex structure of a surface is determined by its Hodge
structure. Thus one only need to record the data of the Hodge
structure of a surface in order to reconstruct the surface. The
size of the data of the Hodge structure is much smaller than the
size of the data from triangulation. Thus a numerically efficient
method to link a surface and its Hodge structure will
dramatically simplify the procedure of image processing and
improve its efficiency and accuracy.